Strongly Nonlinear Wave and Transport Models in Stratified Fluids

Wave motion is one of the most common phenomena of the
natural world and a subject central to Applied Mathematics. This
proposal focuses on two areas in fluid mechanics: internal gravity
waves, as encountered in the ocean and atmosphere, and waves at
the interface between two phases dominated by a large viscosity
contrast, a setup that occurs in the lung airways. While situated
far apart in their relevant scales, these two areas nonetheless
share common mathematical tools for devising models able to
describe and predict their main dynamical behaviors. Within the
first theme, a long term goal is to provide a model of internal
waves in layered stratification that correctly accounts for
dispersion and high nonlinearity. The motivation comes from the
growing body of evidence, experimental and in the field, that
large amplitude internal waves are easily attainable and a common
feature of ocean dynamics. The focus of the second theme is to
develop the proper model capable of detecting and following the
evolution of instabilities in a class of core-annular flows in a
pipe. The motivation comes from understanding the hydrodynamic
feedback mechanisms that govern mucus-air flow coupling in
respiratory systems. Careful asymptotic analysis taking advantage
of the long wave nature of the dynamics can be brought to bear on
both problems, with emphasis on strongly nonlinear motion. Field
and laboratory data test the resulting models and their predictive
capabilities.

The overall aim of this project is to isolate, understand,
and integrate into working models particular mechanisms of wave
dynamics that experiments, field observations, and analysis
suggest are important for an accurate mathematical description of
certain fluid flow problems. The outcome of this approach informs
and benchmarks experiments as well as more elaborate numerical
simulations. The understanding made available through the new
models has an impact in environmental and health sciences, e.g.,
by enhancing the accuracy of simulations of nutrient and pollutant
dispersion in the environment, or, for the second part of this
project, by helping devise improved strategies of drug delivery in
human airways.